PFI: BIC Shellfish Mariculture in Downeast Maine: Building Innovation Capacity to Diversify Economic Opportunities

This Partnerships for Innovation: Building Innovation Capacity project from the University of Maine at Machias (the easternmost of the seven campuses in the University of Maine System) examines opportunities to create new marine aquaculture jobs and new wealth in east coastal Maine through shellfish research involving two commercially important species: blue mussels (Mytilus edulis) and Arctic surfclams (Mactromeris polynyma). Currently, mussels are cultured using juveniles sourced from the wild where spatial and temporal variation in both biotic and abiotic conditions does not allow for consistent annual production schedules. Surfclams are not cultured anywhere at present, and, although present in the Gulf of Maine, are harvested commercially only in the Canadian Maritimes where they are dredged hydraulically at depths greater than 20 meters. The surfclams are flash frozen and only their feet are marketed. The proposed activities advance knowledge and understanding within the field of shellfish aquaculture involving the hatchery, nursery, and growout phases of these two commercial bivalve species that have yet to be produced in shellfish hatcheries in the U.S. The research effort will yield information critical to other researchers and commercial businesses about the parameters that affect growth and survival of each species from early to later life-history stages.

The broader impacts of this research are related to increasing U.S. competitiveness in the seafood industry. For example, since 1990, U.S. mussel imports have increased from 2,600 tons to more than 15,000 tons. Over 90% of the imports come from two countries, New Zealand and Canada, because the domestic supply is inadequate to keep up with consumer demand. Other impacts involve mentoring undergraduate students in teaching, training, and learning through hands-on hatchery and field-based activities that will broaden participation of underrepresented groups (academic and geographic). The academic-small business partnership is fundamental to the shellfish research that creates a stronger, more efficient research infrastructure. As configured, this partnerships will lead to commercialization activities that are sustainable and compatible with the cultural heritage and ecological values of downeast Maine. PI Beal (a Fulbright Scholar) and co-PI Shumway (an Aldo Leopold Fellow) have extensive experience bridging the gap between industry and academia and will be active in the project as well as in outreach activities.

Partners at the inception of the project are the lead academic institution, University of Maine at Machias, a public, undergraduate institution of 1,000 students and 100 employees in eastern Maine; and three primary, small technology-based business partners: AC, Inc (Beals, ME), the largest wholesale seafood business in eastern Maine with 23 employees; New DHC Inc. (Machiasport, ME), a salmon aquaculture company in eastern Maine with 55 employees; and, Pemaquid Oyster Company, Inc. (Waldoboro, ME), a shellfish aquaculture company with 6 employees. Other academic and governmental partners include the University of Connecticut, Department of Marine Sciences (Avery Point, CT); Two branches of National Oceanic and Atmoshperic Administration (NOAA): National Marine Fisheries Service (NMFS) in Milford, CT; and National Centers for Coastal Ocean Science (NCCOS) in Charleston, SC.